Occurrence and Biogeochemical Factors Controlling Toxicity and Transport of Metal & Organic Contaminents in the Casper Kill Watershed, Dutchess County, NY

9424059 Walker The Vassar College REU site will undertake a multidisciplinary biogeochemical investigation of contaminant distribution, transport and toxic effects in a small urbanized watershed in Poughkeepsie, NY. Once the magnitude and spatial distribution of contamination has been assessed, specific investigations of toxicity, contaminant transport and speciation will be undertaken with the ultimate goal of creating predictive models of the fate and effects of contaminants in the watershed. Toxicity experiments will be performed in controlled, benchtop settings with in situ monitoring of element levels and speciation. Transport studies will include detailed field investigations of the spatial relationships of element distributions, identification of important solid and colloidal phases in both stream sediment and water column, and laboratory studies of element partitioning between phases. The project will engage fourteen undergraduates and six high school teachers over two years. Participation will help both students and teachers realize the importance of interdisciplinary approaches to the study of environmental questions, and the advantages of a "team effort" in formulating a more complete understanding of the problem.